Integration of WeatherBug Schools Program into Curriculum of Springfield Ball Charter School for Student, School, School District, and Community Educational Enhancement

This small equipment-related grant provides weather data to a school and a school district. It is designed to be a regional resource to improve the teaching of math and science and attract young students to atmospheric sciences. It will be part of the large nationwide WeatherBug network.